Hippocampal Plasticity Induced by Patterned Stimulation

The goal of the work described in this proposal is to determine how stress negatively influences learning and memory. It is known that a brain structure called the hippocampus is necessary for many forms of learning. In addition, the hippocampus has a high number of receptors which detect the presence of stress related hormones in the blood. What does the presence of such stress hormones do to the normal function of the hippocampus? This question will be answered using electrophysiological and behavioral techniques in rats. In particular, work will focus on determining the influence of stress related hormones on primed burst potentiation, a very long lasting increase in the strength of connections in the hippocampus which is induced by threshold electrical stimulation. Primed burst potentiation may represent a mechanism which is normally used by the brain to make memories.